Project MERGE+ (Mathematics Enrichment and Reinforcement in General Education)

Building on previous projects funded by NSF and the State of Tennessee, this 1.5-year project addresses the problem of improving mathematics instruction in secondary schools, especially middle schools. During the academic year, fifty teachers (including ten alternates) of grades 5 through 8 will deepen their mathematics backgrounds by taking specially designed courses in algebra and trigonometry. During the summer, forty of these teachers will join twenty high school teachers in a five-week workshop that includes instruction in discrete mathematics and basic computer science, as well as discussion of appropriate teaching strategies. Teams consisting of two middle school teachers and one high school teacher will collaborate on the development of lesson plans. Participants will be drawn primarily from inner-city schools in Memphis, Tennessee. The project also includes a five-day workshop in probability and statistics sponsored by the Memphis Urban Mathematics Collaborative and a two-day curriculum review workshop. LeMoyne-Owen College and the Memphis Urban Mathematics Collaborative are contributing as cost-sharing an amount equal to 8% of the NSF award.